U.S.-China Cooperative Research: A Theory and Methodology for Testing Concurrent Software Systems

9731620 He This award supports initiation of collaborative research on testing concurrent software systems between the research group led by Xudong He at North Dakota State University and the research group led by Hong Zhu at Nanjing University in China. Professor He is an expert on formal methods for concurrent systems and Professor Zhu is an expert on software testing theory. The goals of the project are to develop a theory for testing concurrent software systems in general and to develop a methodology specifically for testing Hierarchical Predicate Transition nets. Support on the Chinese side will be provided by the National Natural Science Foundation of China.